Experimental Particle Physics

This grant covers two Northeastern groups formerly funded under separate grants who have combined on this grant, continuing a trend toward consolidation begun in 1989. Group members participate in D0 at the Tevatron, L3 at LEP - both taking data, E706 at FNAL whose run has ended, and SMC at CERN that will run again next year as well as in SDC for the SSC. They also are engaged in R&D studies on fiber tracking.